Wives' Economic Dependence: Introducing a Framework for Analyzing the Economic Relationship Between Spouses

The economic dependence of married women on their husbands is an important yet hidden dimension of inequality in contemporary society. This dependence persists even among employed wives, who typically earn less than their husbands. This project will provide a new framework within which to view contemporary American marriage by constructing and validating measures for three distinct dimensions of wives' material dependence: the level of actual economic dependence, the level of economic independence possible if homemaker wives were employed full-time, and the degree to which wives are dependent upon their husbands for social prestige. The theoretical importance of these concepts will be examined by testing the explanatory power of models derived from sex-role socialization theory (the internalization of attitudes and aspirations as a result of early childhood upbringing) and a structural gender stratification theory (the concrete context of work and family which either pushes women out of the labor force or pulls them into it as lifetime workers) for predicting the level of individual women's dependence. Using data from the Career Development Study from the state of Washington and from the cross- sectional, national probability sample of the National Survey of Families and Households, these measures of material dependence will be used to predict indicators of gender equity within marriage. This project will fill a major gap in the sociological study of marriage and the family, contributing to our understanding of their nature and functioning and yielding knowledge about the consequences of economic dependence on the division of household labor as well as on wife abuse.